PYI: Computational Problems in Network Design

Computational problems in network design and analysis are addressed. Since standard approaches to finding exact solutions to these problems are time consuming, the focus is on the development of new approximation and parallel algorithms. Multi-commodity flow is used as a tool to formulate and solve network problems.